Future Scientists and Engineers of America (FSEA)

Future Scientists and Engineers of America (FSEA) is a structured after-school program to promote math and science through engineering applications among American youth, grades 4 through 12. FSEA has hands-on projects at increasing levels of complexity which provide student members with practical engineering applications of science and mathematics. Students advance through categories similar to the Scouts based on Satisfactory completion of projects. They enter as a technician and advance to levels of scientist and engineer. Chapters are sponsored by businesses, professional societies and community organizations which provided mentors and funding for FSEA projects. Each Project is conducted by a team consisting of a volunteer teacher and a volunteer mentor. A mentor must have a technical background in a scientific or engineering field. Mentors can be volunteers recruited from industry, retired scientists and engineers or engineering students. In less than a year, mentors and teachers have attended start- up workshops and 24 chapters have been successfully organized. Increasing demand for chapter development, with continuing emphasis on minority and female youth, has created the need for further development of projects kits, parent involvement and continuity among feeder schools. The proposal intends to develop the procedures, structure and organization that would enable FSEA to develop an additional 35 chapters in Southern California and become a national after-school program and expand to other states.